4th U.S./Japan Workshop on Urban Earthquake Hazards Reduction

9403843 Tubbesing This workshop, the fourth in a series of successful joint workshops convened by the Earthquake Engineering Research Institute and the Japan Institute of Social Safety Science, will be held in Osaka, Japan, It will provide an opportunity for the U.S. and Japan to build on cooperative research efforts and to strengthen existing professional ties. It is anticipated that the papers and working group records, issued as proceedings, will have substantial utility for researchers and practicing professional in seismic hazard areas throughout the U.S. ***